A conference to encourage and support women creating and distributing STEM media

In both the STEM media and entertainment sectors women are significantly unrepresented. Women account for only 21% of the upper-level positions in film (directors, writers, executive producers, cinematographers, etc.) according to a recent study. This small conference directly addresses how to expand the volume of STEM focused media and entertainment content centered on women and girls. The Creative Workforce Summit: Women Storytellers Explore STEM will be held in New York City and online (hybrid) in September 2022. The goal of the conference is to 1) encourage an infrastructure of support for the creation and distribution of informal STEM educational film, digital, and television content that is centered on women and girls and 2) to strengthen ties between women in media, entertainment, and women in STEM fields. The agenda includes keynote addresses by thought leaders in STEM disciplines and media, panels of industry leaders, a youth journalist interviews, and film screenings with filmmaker and scientist Q&As. The conference will be a hybrid event to allow for the greatest access to a broader audience. The projected 300 in-person and 1000+ virtual attendees will be drawn from New York Women in Film and Television’s extensive membership and 100+ partner organizations in entertainment and media, including Black Public Media, Brown Girls Doc Mafia, Firelight Media, ReelAbilities, and the National Association of Latino Independent Producers. The conference will be followed by a publication based on the convening featuring the keynotes, abridged panel discussions, additional interviews, and industry representation data analysis. In addition, a curriculum guide for high schools and colleges focused on STEM and film collaborations will be developed and distributed.

A post conference quantitative survey will be conducted with conference participants to gather data on the impacts of the conference. Questions to be asked include: What new professional connections were made by women attending the conference? What was learned related to the craft of STEM related media production and distribution? Were new and meaningful connections made with participants outside the participant’s current field/networks? Additional analysis will be done by the organizers of the conference in planning post-conference strategies for supporting and building the women in STEM infrastructure.

This small conference project is funded by the Advancing Informal STEM Learning (AISL) program, which seeks to (a) advance new approaches to and evidence-based understanding of the design and development of STEM learning in informal environments; (b) provide multiple pathways for broadening access to and engagement in STEM learning experiences; (c) advance innovative research on and assessment of STEM learning in informal environments; and (d) engage the public of all ages in learning STEM in informal environments.